Experimental Studies of a Tunable, Long Pulse, Raman, Free Electron Maser

A working demonstration of a tunable, long pulse, high frequency (raman), free electron maser was presented. Existing microwave tubes create coherent power at excellent efficiencies and are indispensable instruments of present uses of the microwave frequency band. The free electron laser is under active research investigation because it offers high efficiency, high power, and tunability even into the ultraviolet. This project focuses on achieving results in the millimeter wave band and concentrates on experimental verification of several possible efficiency enhancement methods using lower frequencies for some experiments.